Temporal Variation in Deep-Sea Benthic Boundary Layer Communities: Long Time-Series Measurements

The importance of long time-series studies for examining temporal variation in marine communities is widely accepted. Although seasonal sampling and measurements have shed much light on the temporal variability of biological processes in the deep sea, it has been difficult to understand many aspects of the functioning of these communities without a "continuous" record of certain biologically significant processes over longer time periods. This project will conduct a long time-series monitoring program (>2yrs) of a benthic boundary layer community using time-lapse photography to monitor sea floor processes and particulate flux measurements as an estimate of food supply entering the benthic boundary layer. Such monitoring will provide a temporal framework for more intensive seasonal measurements of benthic processes at a single deep bottom station in the California Current upwelling system where strong seasonality in primary production at the surface and in particulate organic matter (POM) flux at deep bottom depths is well established. Dr. Smith will address two major questions: 1) Is there a temporal relationship (that is a coupling) between the flux of particulate organic matter (POM) entering the benthic boundary layer (BBL) and the arrival and residence of detritus at the sediment water interface? 2) Is there a temporal relationship between the distribution, abundance, movements, and nutritional state of large bottom dwelling organisms and the flux of POM entering the BBL and/or the arrival and residence of detritus at the sediment-water interface? This study will improve our understanding of the functioning of deep-sea benthic boundary layer communities and their importance in biogeochemical cycling over interannual time scales.